Probing with Radio Pulsars

AST-9619552 Probing with Radio Pulsars. Dr. Wolszczan will continue his research using radio pulsars as probes to study extrasolar planetary systems, relativistic gravitation, galactic populations of neutron stars, and the physics of neutron star interiors. Most of the observational data will be collected with the two specialized pulsar receivers constructed at Penn State University and mounted on radio telescopes at Arecibo, Puerto Rico and Torun, Poland. ========